Pre-College Marine Science for Young Hearing Impaired Students

This residential project is designed to expose outstanding young precollege hearing impaired students (in grades 8 and 9) to the interdisciplinary study of Marine Science. Thirty hearing impaired students will be given a four week educational program involving lecture, hands-on field, laboratory, and research experiences. The program will be located at the Wallops Island Marine Science Consortium at Wallops Island, Va.